Doctoral Dissertation Improvement Grant: A GIS-Based Approach to the Study of Hominin Carcass Acquisition at Kanjera South, Kenya

The diet and subsistence behaviors of the earliest members of the genus Homo are central to understanding the behavioral ecology of early hominins and the ecological context of human evolution in general. Because meat is a high quality resource, its importance in the diet and its method of acquisition are of particular interest. The shift toward increased meat eating by early members of the genus Homo has been argued to be a defining adaptation in the human lineage. However, how and in what manner this occurred and the resulting ecological and behavioral repercussions for our hominin ancestors is currently not well understood.

This study proposes to test current competing hypotheses of hominin subsistence strategies and hominin-carnivore competition through a study of hominin- and carnivore-induced modifications in the 2.0 million year old archaeological bone assemblage from Kanjera South, Kenya. Patterns in hominin butchery marking and carnivore tooth marking on fossils will be assessed relative to modern, experimental bone assemblages that have been butchered and fed on by carnivores under controlled conditions. This comparison will allow inferences to be made regarding the degree of competition between early hominins and carnivores as well as the extent of carcass utilization. In order to address how subsistence strategies may have varied relative to environmental factors, this dataset will then be compared to two additional archaeological bone assemblages of roughly the same age but deposited in different environmental settings (FwJj 20, Koobi Fora, Kenya and FLK Zinj, Olduvai Gorge, Tanzania). Patterning in bone surface modifications will be analyzed using a GIS image-analysis method.

By evaluating hypotheses of Pleistocene hominin-carnivore interactions and documenting hominin carcass acquisition strategies, this study will contribute to the broader understanding of early hominin evolutionary adaptation and behavioral ecology. This will be the most rigorous study to date examining early hominin behavioral ecology in a comparative framework through an analysis of sites formed within different environmental contexts. The experimental carnivore-gnawed assemblage created through this project will be a particularly valuable addition to the growing number of existing actualistic assemblages, as it will be the most thorough documentation of canid gnawing patterns. Finally this project will introduce a rigorous GIS-based method to the study of hominin and carnivore bone modification. A GIS image-analysis method will be used to quantify bone modifications in a more precise way than has been done previously. This study will be the first to apply this method to analyze a carnivore-modified assemblage. The new methodology employed here will lay the groundwork for development of greater standardization in archaeological bone data recording.

The proposed research will foster international collaborations with researchers at the National Museums of Kenya, where data collection will be conducted. Further, this research will advance a female in science and facilitate her graduate training, as well as the training of undergraduate student interns.